Drosophila Even-Skipped Regulation and Function

0110856
Jaynes

This proposal is to investigate two aspects of transcriptional
regulation in developing Drosophila embryos. The first is a novel
long-range activity that occurs at the even-skipped (eve) locus at the
blastoderm stage of development, earlier than similar long-range activities
are thought to be active at other genes. The second is the mechanism of
repression by the eve protein product, Eve.

Long-range regulation is thought to underlie such phenomena as
epigenetic control of gene expression. Epigenetic mechanisms are known to
be important for maintaining the correct spatial domains of expression of
HOX and other genes, mediated by genes of the Polycomb and trithorax
groups. This and other epigenetic phenomena, such as position effect
variegation and repression at the mating type locus in yeast, are mediated
in part by the regulation of chromatin structure. In contrast to the
well-studied examples of these phenomena in Drosophila, long-range
regulation at eve occurs at very early stages of development, so that its
analysis may provide a novel perspective on the mechanisms involved. This
proposal uses an integrated biochemical and genetic approach to investigate
these mechanisms, to identify specific DNA sequences that mediate the
effects, to identify and study the functions of proteins that bind to those
sequences, and to identify genes that contribute to long-range regulation
of eve.

Transcriptional repression is a crucial activity in the function of
many DNA binding proteins. Through work on this project, Eve has been
shown to interact functionally with the corepressor Groucho. Eve has also
been shown to contain a Groucho-independent repression activity. This
proposal will investigate the mechanisms of each of these activities using
a genetic approach. Fusion proteins between Eve repression domains and the Gal4 DNA binding protein repress reporter transgenes both early and late in embryonic development, providing an efficient means of screening for
genetic modifiers of this repression activity. This proposal will screen
simultaneously for modifiers of Groucho-dependent and -independent
repression activity. This work should provide novel insights into the
mechanisms of repression.